Student Travel Support for 19TH ACM Symposium on Operating System Principles (SOSP); Lake George, NY; October 19-22, 2003

The Nineteenth ACM Symposium on Operating Systems Principles will be held at Bolton's
Landing, Lake George, New York, October 19-22, 2003. For over 30 years SOSP has been the
leading forum for innovative research in operating systems. Like its predecessors, SOSP
2003 will bring together researchers from around the world to present and discuss the
latest results. In addition to such traditional topics as the performance, functionality,
and security of kernels, file systems, and networks, this year's conference will place
increasing attention on such emerging topics as ubiquitous and mobile computing, sensor
networks, overlay and peer-to-peer communications, and power management. Particularly
noteworthy papers will be forwarded to ACM Transactions on Computer Systems for possible
journal publication. There will also be poster and work-in-progress sessions for the
presentation of promising preliminary work.
This proposal requests funding to support the attendance of 20 US-based graduate students.
Participation in leading conferences is an extremely important part of the graduate
school experience, providing the opportunity to interact with more senior researchers and
to be exposed to leading edge work. The support requested in this proposal will make
possible the participation of students who would otherwise be unable to attend.